Materials for Using Yeast Genetics and the Effects of Radiation

This project is the outgrowth of a series of Teacher Enhancement workshops that led to the establishment of a network of science teachers and research scientists. During more than four years of teacher-scientist collaborations, activities using yeast biotechnology have been developed which engage students in hands-on genetics experiences and scientific inquiry. Students are stimulated by their own ability to generate and investigate questions that concern them directly; inheritance, biotechnology, radiation effects, mutations, cancer, nutrition, and more. Ancillary materials will include a teacher guide, an electronic bulletin board system, and videotapes on techniques. These materials will be integrated into existing high school biology courses.